An Exhibition on Audio Technologies Using New Interactive Computer Techniques

Produce an exhibition that will lead visitors, particularly 140,000 school children each year, to explore and understand modern audio technology. The exhibition capitalizes on the great popularity of recorded music (every student seems to carry a Walkman tape or disc player), to encourage hands-on exploration of audio technologies from microphones to compact disc players. Further visitor inquiry, using a computer-based system developed by the Hall of Science, will encourage an understanding of the underlying principles. The prototype of this "Science Link" system, now in use, has already drawn replication inquiries from 84 science-technology centers, educational institutions, and advertising agencies. Develop additional exhibit techniques that will allow the hands-on investigation of phenomena that cannot be directly observed. Techniques linking computer simulations directly to the physical exhibits will encourage investigation of phenomena that cannot be directly observed. While contemporary electronic technology has become more and more pervasive, its inner workings have become less and less accessible to the layman. In addressing audio technology as typical of this challenge, the project will have applications to many fundamental and applied topics, and will find wide use in science centers and other settings.